GaAs-Based Quantum Dot Vertical-Cavity Surface-Emitting Lasers For 1.3 um Wavelength

Proposal Number: ECS-9734829 Principal Investigator: Dennis Deppe Title: GaAs-based quantum dot vertical-cavity surface-emitting lasers for 1.3 micron wavelength Abstract The proposed research is to develop quantum dot vertical-cavity surface-emitting lasers (VCSELs) and resonant cavity devices, which operate in the 1.3 micron wavelength region, based on strained layer InGaAs quantum dot (QD) structures grown on GaAs, and selective oxidation processes.